CAREER: Optofluidic Lasers at the Liquid-Liquid Interface: A Versatile Biosensing Platform

Proposal Title
CAREER: Optofluidic Lasers at the Liquid-Liquid Interface: A Versatile Biosensing
Platform

Project Goals
This CAREER project investigates bio compatible and bio configurable optofluidic
lasers that are self assembled at the liquid-liquid interface and explores their
transformative applications in bioscience.

Nontechnical Abstract
This CAREER project integrates research, educational, and outreach components to
lead the innovations in both optofluidic lasers and biosensing technologies in
healthcare. The novel approach is enabled by multidisciplinary integration of
photonics, microfluidics, MEMS, and bionanotechnologies that creates a new
modality of all liquid laser array that can be controlled and configured by
bio/chemical molecules and fluids.
The project includes prominent interdisciplinary education and training
components for undergraduate and graduate students. Plans are also in place to
promote involvement of underrepresented students, which leverages the UTA's
status as one of the Historically Black Colleges and Universities and Minority
Serving Institutions. Special attention is paid to recruit and retain female students in
engineering. Finally, the proposed project has extensive outreach programs to train
high school students and engineering teachers and to disseminate knowledge and
research discoveries to the general public.
Technical Abstract
The objective of this CAREER project is to develop an array of bio compatible and
bio configurable optofluidic lasers that are self assembled at the liquid liquid
interface and study this novel optofluidic laser enabled versatile biosensing
technology platform to achieve exceptional detection sensitivity, selectivity, and
throughput in various biological and biomedical sensing applications. The proposed
optofluidic laser features a monolayer laser gain material (i.e., only a few
nanometers thick) confined at the liquid liquid interface, which allows biological
and biochemical molecules to access and directly modulate the laser gain material,
and thus forms the basis of enhanced detection sensitivity and selectivity. The
proposed laser sensing platform is studied for rapid and low cost multiplexed
cancer biomarker detection towards a final goal of addressing current challenges in
the point of care medical diagnostics and health monitoring. The outcomes
generated from this research will lead to new development and discoveries in the
field of bioinspired optofluidic devices and engineering, as well as fundamental
research on extreme sensing and extreme photonics.